The 1999 Gordon Research Conference on Chemical Oceanography, Meredith, N.H. 8-13 Aug. 99

ABSTRACT

OCE-9907240

The principal investigator on this project will convene a Chemical Oceanography Gordon Conference in August, 1999. The objective of this Gordon Conference is to bring together an interdisciplinary group of scientists to discuss emerging fields and outstanding controversies related to the chemistry of the sea. Conference topics include, but are not limited to, air-sea-carbon dioxide flux, early diagenesis and diagenetic modeling, diagenesis and evolution, biogenic carbonate chemistry and preservation, development of paleotracers, and surface chemistry. Speakers and discussion leaders have been selected ahead of time from the cadre of leading scientists in the U.S., Canada, and Europe. The Chemical Oceanography Gordon Conference is generally regarded by the marine chemistry community as one of the indispensable benchmark events of each year.